SBIR Phase II: Shear Stress Sensor Based on Optical Micro-Spring Technology

This Small Business Innovation Research (SBIR) Phase II project is aimed at the
development of a wall shear stress sensor based on micro-optical resonators. The core element of the sensor, the micro-optical stress gauge (MOSG), consists of a micro-optical spherical resonator and optical fibers through which tunable laser light is coupled into and out of the sphere. By monitoring shifts of the resonator spectrum, that are a function of the deformation of the sphere, forces can be measured over more than four orders of magnitude with minute deformation of the resonator (< 1 nm). This capability allows a
MOSG to be incorporated within a shear stress sensor in which the motion of a floating element in contact with the fluid is minimal. In Phase I, a breadboard version of the sensor was fabricated and successfully tested in a model flow between two parallel plates, where measurements were in close agreement with computational predictions. Phase II research will focus on advancing the technology by improving measurement rate, sensitivity, and dynamic range, along with decreasing vibration susceptibility, and
improving robustness. Sensor prototypes will be tested on high shear industrial mixers with the aim of commercialization for the process mixing market.

The broader impact/commercial potential of this project will include the advancement of the understanding of the fundamental processes occurring in boundary layers of flows. For non-Newtonian or otherwise rheologically complex fluids, wall shear stress cannot be reliably calculated or, especially for non-transparent flows, measured. The proposed sensor fills a need for shear stress measurement in the fields of fluid dynamics, aerodynamics and medical research. The largest impact is expected to be in the chemical and pharmaceutical industries that are suffering from an inability to scale and predict processing equipment performance. Knowledge of wall shear stress will provide means to improve process control, quality and throughput of products including drugs and other pharmaceutical products, foods, paints, inks and dyes, cosmetics, and many others.